Mathematical Sciences: Approximating the Fractal Properties of Invariant Sets

This project lies in the general area of discrete and continuous dynamical systems and the associated invariant sets. In particular, the goal is to develop a framework for the analysis of error and convergence for the calculation of the dimension of invariant sets. These sets are often fractal in nature and more general definitions of dimension must be used. The dynamics will usually be associated with a Markov partition and the sets will support a Bernoulli probability measure. Another aspect of the project will be a study into the onset of chaos and intermittency in dynamical systems. The theoretical study described above has relevance to the behavior of various biological, chemical and physical systems involving dynamics.